Mathematical Sciences Research Equipment

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project will be used for several research projects, including modeling and simulation of mechanoreceptors in sensory physiology, development of patterns by dynamical systems on lattices, fractal analysis of terrain, studies of non-columnar steady states in swirling flows, and classifying links via closed braids.